ORGANIZATIONAL PAESMEM FOR SACNAS MENTORING

HRD-0429977

The Society for the Advancement of Chicanos and Native Americans in Science (SACNAS) has established an array of activities that work to increase the numbers of Hispanic/Latino and Native American students pursuing and achieving advanced degrees in STEM fields. Through mentoring activities at scientific meetings, teacher workshops, and its own annual conference, and by engaging in partnerships with other professional organizations, SACNAS provides ad supports opportunities for students to strengthen their presentation skills, self-confidence, and make connections with scientists.

The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.